A 3-D Digital Holographic Instrument for Imaging Cloud Drops and Ice Crystals

9322818 Lawson The objective of this (Phase II) research is to design, build and test an airborne digital holographic instrument for imaging cloud drops and ice crystals. This technique will provide an explicit measurement of liquid water in clouds, as well as the size and shape of small ice crystals, which are needed to determine the optical properties of cirrus clouds. ***